Acquisition of an Electronic Particle Size Analyzer

An Elzone (Model 180XY) Particle Size Analyzer will be purchased. The system produces precise and detailed grain-size data and will have an immediate impact on both current and planned research projects by the principal investigator. These include: 1) an ATM study of the stratigraphic and geochronologic controls on sedimentation in Lake Turkana, Kenya; 2) an ongoing study of contourite deposition in Lake Superior; 3) a study of sediment dynamics in the Great Lakes by Notre Dame's Environmental Research Station.